Negative-Ion Chemistry

In this project in the Physical Chemistry Program, Simons will study a novel class of stable closed-shell cation core molecules (e.g., hydronium, amonium, HFH+) with two "active" electrons orbiting in diffuse Rydberg-like orbitals about this core. These species are believed to display unusual electronic structures: the two outer electrons undergo highly correlated motion to reduce mutual coulombic repulsions, and certain of their states are likely to be metastable resonance states which autoionize because they lie higher in electronic energy than underlying neutral-molecule states. The work involves ab initio structure calculations on highly correlated species, the treatment of non-adiabatic coupling, of an ejected electron, and the development of a new analytical model to interpret and predict the energy level patterns observed (computationally and experimentally) for these species. Because the electron binding energies of these anions are likely to be small (i.e., a few tenths of an eV), they may also possess states which are electronically bound but which autoionize via energy flow from the rotation/vibration degrees of freedom of the underlying core to the outer electrons (i.e., which decay through non-adiabatic coupling). The first member of this class of anions is certain to be of interest to experimentalists and the study will be carried out in close communication with them.